RI-Small: Unsupervised Learning of Meaning

The goal of this research to to develop a new generation of robust, highly
effective unsupervised and semi-supervised models of meaning
extraction. Our key methological insights include the use of
global methods of inference to simultaneously consider many linguistic
aspects of the task, the use of rich typed lexical dependencies,
and the semi-supervised use of structured data from the web, such
as dictionaries, thesauruses, encyclopedias, and so on. We are
extracting meaning at three levels: word meaning, propositional
meaning, and conceptual meaning. At the word level, we are learning
lexical relations like hyponymy (leptin is-a hormone), synonymy,
and others both from raw text and from structured sources like on-line
dictionaries. At the propositional level, we are learning
predicate-argument structure using a global unsupervised clustering
model as well as developing semi-supervised methods of learning semantic frame
extractors. At a larger structural level we are inducing scripts
and structured narrative relations between verbs. These rich models
of meaning will have a broader impact by providing a critical step
towards the creation of systems with true language understanding
capabilities. The results could thus impact the creation of
natural-language applications in every field, from educational or
tutorial applications, to information extraction tasks like legal
discovery, to conversational agents. All deliverables of this
project will be available on the web: WordNet expansions, induced
frames and scripts, our temporal event classifier, and semantic
role, frame, and script inducers.